An Investigation of Boolean Approaches to Physical Design Problems

The Boolean Satisfiability problem (SAT) lies at the core of many
computational tasks in the field of design automation. While SAT has the
distinction of being the first member of the NP-complete class, recent
advances in search pruning algorithms have yielded a crop of powerful SAT
solvers capable of tackling problems involving tens of thousands of
variables and millions of constraints. This project is exploring the
application of the particularly effective GRASP SAT engine to exactly model
and solve a class of physical design problems that have traditionally been
attacked heuristically. Specifically, research activities being carried out
under this grant include: 1) layout optimization of field-programmable gate
arrays (FPGAs) including ways for modeling signal path route patterns,
modeling and imposition of timing requirements, and quick determination and
distillation of useful diagnostic information in cases of unroutability,
and 2) custom-quality transistor-level cell synthesis through better
estimation of routing area during transistor micro-placement, simultaneous
placement and routing, and exploration of more degrees of freedom in both
placement and routing. A detailed FPGA routing tool developed in this
project is being widely distributed.